Joint US-FSU Research Project Using the VLA, the Ratan 600 and the Yohkoh SXT to Observe Large-Scale Magnetic Structures in the Solar Corona

9317795 Lang This award continues a cooperative research program using the VLA and the RATAN 600 radio telescopes to study the sun. It involves collaborative research, lectures and student involvement that contribute to the education and development of young scientists in the US and Russia. The coordinated observations which will be made using three instruments will provide new information to study large-scale coronal magnetic structures. The observations will be made at a time of decreased solar activity when the compact, intense active regions will no longer dominate radio or soft X-ray images, and the large collecting area of the radio telescopes can be used to delineate the fainter, large-scale structures. Solar observations taken on the same day by the VLA and the RATAN 600 will be compared during two one-week visits per year for scientists to the host country. These visits will also include lectures and student involvement. ***